Reporter Epitope Technique for Determining the TransmembraneOrientation of a Membrane Protein Polypeptide Chain

To understand how a membrane protein, such as the cholinergic works, it is important to know which parts of its polypeptide chain are oriented across the membrane. The best way to do this would be x-ray crystallography, but this has not yet been possible for membrane proteins as large as nicotinic receptors. Sequencing of cDNA clones for membrane protein subunits provides a great deal of structural information. One approach to determining the transmembrane orientation of a polypeptide chain is to make antibodies to synthetic peptides with the sequence of an interesting part of the polypeptide chain thought to be exposed on one side of the membrane or the other. Then, if these antipeptide antibodies are highly specific, and if they recognize the native protein, determining to which side of the membrane antibodies bind determines the transmembrane orientation of that sequence. The Dr. Lindstrom has developed libraries of monoclonal antibodies to nicotinic acetylcholine receptors from fish electric organs. The amino acid sequences to which some of these antibodies bind, their epitopes, have been precisely determined. This research project will use monoclonal antibodies to a epitope sequence inserted into the membrane protein to determine the transmembrane orientation of the epitope when the modified DNA is expressed into Xenopus oocytes. The method will allow Dr. Lindstrom to study nicotinic acetylcholine receptors from human muscle and chicken and human brain. If the technique is successful, it should allow rapid determination of the transmembrane orientation of parts of the polypeptide chain of any membrane protein for which the cDNA is available without the cost, time, effort, and risk of failure of synthesizing peptides, making antibodies to the peptides, and determining their specificity, before testing with the native protein.